DNA and Protein Sequencing and Synthesis Systems

This proposal requests instrumentation for a protein and nucleic acid chemistry facility at Yale University. The facility serves l38 investigators at Yale, the NIH, and 30 outside institutions. Thus, it serves as a regional resource center that meets the needs of a diverse group of investigators whose problems require either peptide separation, amino acid sequencing or analysis, or peptide synthesis. The facility is a clearing house for protein chemistry techniques and methodologies.